3-D Acoustic and Elastic Finite-Difference Modeling and Imaging of Earth Structure and Earthquake Sources

Project develops, implements, tests, and applies acoustic and elastic 3-D finite difference modelling schemes. Applies techniques to seismic data, and earthquake sources. Primary thrust is the improvement of the 3-D techniques. Immense potential benefits to the seismic community, allows economic evaluation of very complex geological structures.